Solutions of the Navier-Stokes Equations on the CYBER 205

Time-reversing viscous flows are of very general interest and contain features as yet not well mapped out. Special cases have been extensively investigated. This effort will use supercomputing to lift previously necessary limiting conditions. This work will prove valuable in generalizing the understanding of unsteady flows as well calibrating the numerical method for the case already known.